Conference "Advances in Constructive Approximation"

ABSTRACT
PI: E. B. Saff/M. Neamtu
Prop: 0242875

Conference `Advances in Constructive Approximation'

The proposal is primarily for the support of graduate students and
recent Ph.D.'s to participate in the international
conference "Advances in Constructive Approximation," which
will be held May 14 -17, 2003 at Vanderbilt University.
The general theme of the meeting concerns the interactions
of approximation theory with several areas of classical,
functional, and numerical analysis, with applications to
data fitting, computer-aided geometric design, wavelets
and signal processing. The conference is expected to
attract a good mix of academic, industrial, and government
researchers.

The estimated attendance is about 120.